Dissertation Research: The Creation of Identity Through Discourse in S.W. Alaska

This dissertation research project supports a socio-linguistic anthropologist in Bethel, Alaska. The research will study how Yupik Eskimo and non-native men in this small rural community establish their identities through conversation and discourse related to subsistence. In Alaska, Native American subsistence patterns of hunting and fishing are critical definers of an appropriate lifestyle. Methods include participant observation during subsistence hunting and fishing, recording and analysis of conversations during daily life, and extended life history elicitation during formal interviews. This research is important because Native Americans are one of the fastest growing census categories in U.S. society. Increased understanding of how Native Americans understand themselves in relation to non-Native others will help society decision makers to design programs that deal with issues of importance to Native Americans.